U.S.-Japan Cooperative Research: Numerical Modelling and Rheological Properties of the Transition Zone

9417281 Yuen This award supports a three-year cooperative research project between Dr. David Yuen of the University of Minnesota and Professor Satoru Honda of the University of Hiroshima. The objective of this cooperative research project is to study the dynamics and physical properties of the transition zone of the earth s mantle by numerical modeling and measurement of the creep properties of mantle minerals characteristic of the transition zone. Research outcomes will enhance our knowledge of solid-earth geophysics, high-performance computing, advanced visualization techniques, experimental techniques in rock deformation and multi-anvil cell technology. This proposal brings together research scientists from two countries working on mantle dynamics and convection. The research problem to be undertaken has many facets and cannot be undertaken successfully by any one group. By combining their expertises, the two groups can achieve a deeper understanding and more rapid progress than can either group alone. Therefore, this proposal fulfills the objectives of the Program in its exchange and transfer of scientific knowledge through an international collaboration. ***